Development of Chromate-Free Hybrid Nanocomposite Coatings for the Protection of Metals Against Corrosion

The objective of this project is to develop chromate-free corrosion hybrid clay/polyimide nanocomposite coatings with improved corrosion resistance and lifetime. The key to achieving the stated goal is effective control of dispersion and structure of clay platelets. Double intercalation polymerization technique involving oxidative intercalation of aniline in the presence of clay followed by condensation polymerization of polyamic acid reaction mixtures in the presence of clay/polyaniline nanocomposites will be used to effectively control the extent of intercalation of clay and improve the dispersion of clay in the polyimide matrix. The polymerization conditions will be systematically controlled effectively control the d-spacing and dispersion of clay. Coatings of the hybrid nanocomposite containing clay with varying extent of intercalation will be cast onto aluminum or steel substrates. The corrosion rate and lifetime of hybrid nano-composite coatings, containing clay with known extent of intercalation will be determined and correlation between the structure of clay and corrosion inhibition and lifetime will be made.

The proposed research will have a significant impact in the development of environmentally friendly coatings and provide a viable alternative to hazardous chromate coating systems, which have been prohibited by the EPA since 2007. Corrosion management and protection of metals costs the nation over $20 billion annually. Successful completion of this research will offer the potential for significant improvements in protection against corrosion and enhancement of coating lifetimes there-by reducing maintenance and equipment down-time costs.